Doctoral Dissertation Research in Geography and Regional Science

Most studies of human coping strategies have been limited to the responses of a population to cataclysmic events like droughts. Equally important is the response of a population to gradual, human-induced degradation of the physical resource base in an intrinsically verdant environment. This doctoral dissertation project will examine agricultural responses of the population of the Highland prefecture of Gikongoro in Rwanda, which is experiencing serious declines in food production, to increasing population density. It will identify and explain changes over time in land productivity as interpreted by farmers and documented in the literature, and it will analyze the agricultural and non-agricultural responses to changes in land productivity. National and Gikongoro surveys of changing views towards land productivity and agricultural practices, aerial photographs showing land uses in 1958, 1979, and 1990, data from existing ministry surveys, and information from libraries and other sources will be use to assess relationships among a variety of societal and environmental factors over time and space. This project will contribute to geographical and social scientific understandings of strategies for coping with food deficits, and more broadly, with basic problems of food production in tropical Africa. It also will test the validity of using a political ecology framework for analyzing questions about human-environment interactions. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.